SBIR Phase I: Computer Vision for Merchandizing Forest Products

The broader impact of this Small Business Innovation Research (SBIR) Phase I project will result from applying leading-edge artificial intelligence technology to the logging industry. Logging (wood harvesting) is the first step in the production of paper packaging, health and hygiene products, clothing fibers, and even resins that are used in our technology devices. The forest products industry employs nearly one million people and contributes hundreds of billions of dollars to the US economy each year. Yet, there has been very little technological innovation in logging in recent decades. This project aims to research and develop computer vision technology that will augment a person’s ability to grade harvested trees accurately. The resulting technology may increase the number of jobs available to unskilled workers in rural areas, ensure effective and efficient utilization of harvested trees, and increase revenues for thousands of small businesses in the wood supply chain.

This Small Business Innovation Research (SBIR) Phase I project aims to demonstrate the feasibility of a computer vision system to augment the skills of human-machine operators in the tasks of grading and sorting logs. During the project, a suitable domain-specific dataset will be established, a new chain of computer vision models will be created and trained, and a fully integrated prototype will be deployed in a remote environment. To achieve these goals, the company will research the use of self-supervised learning to expedite the creation of a domain-specific dataset, along with adaptable chains of models and model compression to enable efficient inference at the logging site (i.e., without the need for cloud computing resources). The company will also create new methods for determining specific objects of interest (such as defects) and assessing the grade of each log. If successful, the project will demonstrate a computer vision system that is able to identify and locate specific logs of interest, track the logs, assess each log’s dimensions, locate defects on the logs, accurately determine a grade for each log, and give visual feedback to a machine operator – all within the operator’s brief decision timeframe.